Science of Fashion:The Principles of Chemistry, Physics, Biology, Mathematics and Technology that Drive the Textile Industry

Science Museums of Charlotte, Inc. will develop a 5500 square foot traveling exhibit on SCIENCE of FASHION for the Science Museum Exhibit Collaborative (SMEC). Opening in February 1994, SCIENCE of FASHION will tour eight major U.S> cities over thirty-two months, introducing 2.5 million people to principles of chemistry, physics, biology, mathematics, and technology that drive the textile industry. SCIENCE of FASHION integrates diverse disciplines and will help public explore science in a wholistic manner. Because the subject matter is somewhat unusual fare, SCIENCE of FASHION will help diversify audiences, drawing in population segments, particularly women, who may not normally visit science museums. SCIENCE of FASHION is an eloquent vehicle for science-rich exhibitry which teaches the mathematics of pattern geometry, production statistics, and retail costs, polymer chemistry for engineering new fabrics, the genetics of new natural colors and strong aware fibers, and the sophisticated research, robotics, and computerized technologies that keep America's textile industry at the top international commerce. Rigorous evaluation will ensure a satisfying product that is educationally-effective, durable, and appealing to a broad public audience. SCIENCE of FASHION will be a worthy addition to the rich menu of science fare in SMEC exhibitry.